Some Correlates of Attitude Heritability

The goal of this project is to explore the heritable components of social behavior. Some heritability estimates have been reported on a number of$attitude items. A series of studies will be undertaken on the heritability of social influence, attitude correlates, and personality. This approach extends the current trend in social psychological research to investigate the biological and physiological correlates of social behavior. The main question to be addressed by this research is whether the heritability of attitudes is correlated with other known attitude parameters.